EAGER: Mitigating Effect of Carbon Nanotubes on Bacterial Cells by Polymeric Entrapment

This research offers fundamental and possible breakthrough results that will benefit practical applications in public health and environmental nanotechnology. For first time, mitigation of the negative effects of a common nanoparticle will be studied from the organism side. Results of the work can be adapted to other nanoparticles, such as zero-valent nanoparticles silver nanoparticles, that come into contact with beneficial bacteria commonly present in wastewater treatment systems. This research involves integration of engineering applications, biotechnology, and cellular and molecular microbiology. Broader impacts of the work include support of an institution in an EPSCOR state, training of students inunderrepresented groups inluding native Americans. The research aslso involves the development of novel new technolgy that builds the infrastrucure of science.